Development of an Ion Source for Accelerator Mass Spectrometry

0092508
Elmore

This award provides funding for the construction and testing of a new high-intensity cesium sputter ion source to be installed in the accelerator mass spectrometry (AMS) system at Purdue University. The new ion source is expected to improve the precision, detection limits and sample handling capacity of the Purdue AMS facility. The facility measures extremely small concentrations of 10Be, 14C, 26Al, 41Ca, 129I and other radionuclides that are used in research as tracers or in dating for a wide-range of research applications such as archeology and anthropology, paleoclimatology, landscape evolution, glaciology and paleoseismology.

***